Paleoclimatology of Southeast Asia: Records From Fossil Corals on Sumba Island, Indonesia

9305324 DePaolo This research comprises a field expedition to collect samples of massive corals from uplifted terraces on Sumba, Nusa Tenggara, Indonesia, and isotope analyses of those samples. The objective is to produce several 30-to-150 year proxy records of seasonal climate variability in Indonesia for different time intervals in the last 150,000 years. The data will be used to assess the influence of paleogeography caused by changes in sea level on the intensity of seasonal climate variability, as well as the frequency and intensity of El Nino events as they are manifested in Southeast Asia. The effects of the El Nino/Southern Oscillation have important economic and social consequences on both sides of the Pacific Ocean. Data produced from this study will help unravel specific mechanisms of how oceanographic change affects regional and global climate change. *** 1 9305324 DePaolo This proposal seeks funds to conduct a field expedition to collect samples of massive corals from uplifted terraces on Sumba, Nusa Tenggara, Indonesia. The objective is to produce several 30-to-150 year proxy records of seasonal climate variability in Indonesia for different time intervals in the last 150,000 years. The data will be used to assess the influence of paleogeography caused by changes in sea level on the intensity of seasonal climate variability, as well as the frequency and intensity of El Nino events as they are manifested in Southeast Asia. Preliminary analyses of hand samples collected during a reconnaissance trip to Sumba last summer indicate that the proposed study is feasi ble; massive corals on Sumba are well preserved, and would provide reliable information on seasonal variability of salinity and sea surface temperature. The radiocarbon ages of samples from one of the terraces on Sumba place the growth of the coral at a time when sea level was 50 meters lower than it is today. the data produced from this study will help unravel the specific mechanisms of how oceanographic change affects regional and global climate change during time period with significantly different boundary conditions. *** ar